Product Innovation in Construction

The peculiar characteristics of the products and the technological constraints of construction significantly differentiate it from other forms of manufacturing; this suggests that the process of innovation and factors governing this process will differ. This investigation will decipher the process of product innovation in construction, which has been neglected by researchers despite its immense importance to the technological advancement of construction. This investigation will consider several successful product innovations that occurred on different construction projects. Each project will be the subject of an individual case study, and the study as a whole will use a multiple.case design. The conclusions and implications obtained form the generalizations across the multiple cases will not only add construction's dimension (which is conspicuously lacking) to the existing knowledge base regarding the process of innovation, but contribute to the technological progress in the construction industry itself by allowing researchers and industry professionals to focus their resources on the critical variables of the innovation process in developing new products.//